Conference on Nondestructive Evaluation of Constructed Facilities

9400589 Atkinson A 3 -day conference will address the application of nondestructive evaluation (NDE) methods and equipment to constructed facilities. The several purposes are to permit state- of-the-art assessment of NDE standards, to enable the civil/structural community to be aware of the capabilities of present methods, to establish communication between NDE specialist and users, and to identify future needs and potential of NDE. The conference format will consist of 2 days of presentation followed by 1 day of working group sessions devoted to discussion and development of standards for NDE applied to civil structures. Documentation will consist of a proceedings, working group reports, and a final report. ***